An Automated Environment for Engineering Software Development

A prototype domain-specific software environment will be developed will be developed using structural engineering domain as a test case. This environment will be centered around the concept of software reuse and will be composed of Computer Aided Software Engineering (CASE) tools for managing and integrating reusable software components into applications. The goal is to create an environment by enhancing and tailoring general-purpose software development to a specific class of applications, and to demonstrate its potential for improvement of quality and productivity in research and instructional software.